A Dissection of the Yeast ER Translocation Machine

9506002 Brodsky The molecular mechanism of protein translocation into the yeast ER will be detailed, affording a deeper understanding of how polypeptides may cross biological membranes. Although several factors required for protein translocation have been identified through genetic analyses, how these components act coordinately to thread a precursor protein across the ER membrane remains obscure. Each member of the translocation complex will be purified using standard techniques and analyzed with a novel biochemical complementation test. The mechanism(s) whereby ATP drives protein translocation, perhaps by altering the conformation and activity of a subcomplex of the translocation apparatus will be investigated. The purification of active members of the translocation complex will rely on an assay in which wild type protein fractions are tested for their ability to restore protein import to reconstituted proteoliposomes prepared from cells with non-functional mutations in the corresponding genes. An active subcomplex of the translocation complex was successfully purified using this test of biochemical complementation. Once other active components in the complex are isolated, their interactions with one another, their associations with a precursor protein and ribosomes, and their ability to regulate the translocation channel will be investigated. A liposome reconstituted with essential purified factors in the complex should support protein import and determine which members of the translocation machine are stimulatory or regulatory. To examine how constituents of the translocation complex interact, affinity columns containing the required translocation factors are prepared. Purified proteins or crude solubilized membrane extracts are applied to the matrices to identify interacting subcomplexes or novel members of the translocation complex. To determine which factors in the translocation apparatus contact ribosomes and precursor proteins, purified factors will be r econstituted into liposomes and mixed with radiolabeled ribosomes or secreted proteins to assess their interaction. A likely candidate for these contacts is the translocation channel, Sec61p, which is presently 50% pure and biochemically complements the sec61 mutant in the reconstituted assay described above. The interaction of Sec61p with other factors in the translocation complex and measurements of the uptake of radiolabeled peptides into liposomes containing either Sec61p alone or combined with other purified proteins offer insights into how the translocation pore is regulated. These studies will dissect an intricate protein machine at the ER membrane that performs the first step in the secretory pathway. The results from this study will permit an understanding of how the transport of a protein across a membrane, an energetically unfavorable process, is facilitated by the translocation complex: a membrane protein machine of this complexity has not been fully examined and reconstituted to date. The work proposed here will further the comprehension of energy-requiring transport systems, of gated channels, of heat shock protein function, and of the secretory pathway. Finally, because these studies utilize a genetically defined system and biochemical methods, novel techniques for examining membrane transport and other cell biological phenomena will become evident. %%% The cell uses protein complexes to spacially organize temporal events. These protein machines are found throughout the cell and help to organize, for example, metabolic sequences, global cellular structure and polarity, and traffic of newly synthesized proteins to their correct locations. The protein machine of interest here is an example of the latter; it is one which recognizes newly synthesized proteins destined for delivery outside the cell (secretion) and, like a grocery clerk, bags them up. Interestingly, it only takes those items which should be secreted, so it must recognize those items and open up the bag for them only -- not other proteins. The movement (translocation) of proteins into the bag, or endoplasmic reticulum (ER), is regulated by this energy-consuming protein machine. This work is to dissect the machine, purify the components, and reconstitute its activity using a "synthetic" bag, a liposome. This type or reconstitution has not been done before. The components of the machine have been identified using the power of yeast genetics; if one of the components is made nonfunctional by mutation, the machine stops. The sensitivity of the machine to these mutations can be studied both in the cell (using ER) and in the test tube (using liposomes). The interaction of these components, their energy dependence, and their self-assembly in the test tube are analyzed. The results have application to how other protein machines fit together and how the cell regulates what gets out of and what stays inside the cell. ***